Geometric Group Theory and 3-Manifolds

9803316
Stallings
Stallings is working on matters connected with Grushko's Theorem, with
certain delicate questions about surfaces involved. One recent version of
this concerns a map of a compact connected surface T into a wedge of spaces
A and B, which is surjective on fundamental groups; if the boundary curves
all map to one side or the other, except possibly for one which maps with
length two, the map is homotopic to one that splits the surface into two
parts along a connected piece. He is also interested in matters concerning
hyperbolic groups and cut vertices of graphs and Heegaard splittings of
3-manifolds. These naturally influence his graduate students; and their
ideas and plans influence him too. One student, Kim Whittlesey, has solved
an interesting problem concerning the existence of a subgroup of the
mapping class group that consists only of the trivial element together
with pseudo-Anosov maps. Another student is working on algorithmic matters
concerning free groups and is getting deeply into the theory of equations
in free groups. Another student is interested in using the computer to
discover things about geometric objects, and another has started getting
into the theory of automatic and hyperbolic groups in some detail. The
major portion of the grant is for the partial support of students.
Group theory started out as the study of symmetries of geometric or
algebraic objects. The geometry can be softened into topology, and this
produces some interesting new ideas; M. Gromov was one of the originators
of this (1980's), and it has expanded considerably since his first work.
In hindsight, one can see that geometric ideas about groups have occurred
in work by Gauss (circa 1800), Poincare (circa 1900), Whitehead (1930's).
The nature of 3-dimensional manifolds is especially influenced by the
fundamental group, and conversely many results simply about groups have
been stimulated by these topological ideas. Several logical and
combinatorial aspects of other areas of mathematics have been understood
or even discovered by this approach. There are many good researchers in
this area and many problems that are now approachable.
***